Further Development and Verification of the Shah Correlationfor CHF in Uniformly Heated Vertical Tubes

This research develops further the Shah correlation for boiling heat transfer in vertical tubes. Numerous attempts have been made in the past to develop correlations but only two have been demonstrated to agree with data for a wide variety of fluids and conditions. The proposed study is aimed at improving the Shah correlation to extend its range and give increased confidence in its use.